Model theory and dynamics

Model theory is a part of mathematical logic which has seen extensive applications to numerous areas of mathematics and computer science over the past several decades. This project centers around applications of model theory in dynamics, broadly interpreted. Dynamical systems are mathematical models which describe how a system changes over time. They see wide application throughout physics, biology, engineering, and economics. The systems studied in this project are algebraic dynamical systems and differential equations. The former describe movement in discrete steps, while the latter describe continuous movement. Over the last several decades, model theory has played a major role in the resolution of several central open problems for algebraic differential equations. This project aims to continue that progress while also solving the analogous open problems for dynamical systems. It is expected that the development of the techniques used to attack these problems will lead to new foundational advances in model theory, which will be applied to work internal to the subject as well as connections to machine learning.

Model theory has played a pivotal role in recent transcendence results for solutions of differential equations. The techniques used in such results have matured substantially over the last five years. This project aims to move many of these techniques from the continuous to the discrete setting of algebraic dynamical systems, where we expect applications to the characterization of invariant subvarieties of dynamical systems. In particular, we expect connections to the Zariski dense forward orbit conjecture. One of the central approaches to modern model theory is to study definable sets in the presence of a tameness assumption. Surprisingly, the development of the theory in the central areas of stability and simplicity has drawn close inspiration from differential equations and algebraic dynamics. The new advances in these areas are expected to further the fundamental results in the areas of stability and simplicity. In turn, we expect the model theoretic results we isolate to have application in a variety of other areas including combinatorics and learning theory.